Mathematical Sciences: Special Year in Real Algebraic Geometry and Quadratic Forms at Berkeley, CA., August 1, 1990 - July 31, 1991.

This award will help to fund a Special Year in Real Algebraic Geometry and Qradratic Forms. This Special Year will be held during the 1990-91 academic year in the Department of Mathematics at the University of California, Berkeley. The Special Year is centered around the yearlong visits of Knebusch and Broecker, who are experts in real algebraic geometry. There will be researchers from Europe and North America visiting Berkeley during this Special Year. The main activities will be two seminars: one on real algebraic geometry and the other on the algebraic theory of quadratic forms.